Ultraviolet-Visible Spectrophotometers for Undergraduate Biochemistry Laboratories

The goal of this project is to improve the undergraduate laboratory curriculum by incorporating student work utilizing microprocessor- controlled ultraviolet-visible spectrophotometers. These are used primarily in three upper division laboratory courses; Biochemistry Laboratory and the two-semester Integrated Laboratory. All undergraduates take one or more of these courses, and so receive training in the theory and practice of this instrumentation. These new spectrophotometers introduce important new learning capabilities: flexibility for conducting new experiments as well as updating present experiments, the introduction of derivative spectroscopy in qualitative and quantitative analysis, efficient and rapid data acquisition coupled with powerful data processing capability, training in the practice of computer-interfaced instrumentation for data storage and retrieval, post acquisition processing and computer remote control, and the production of graphical results and spectral manipulations such as least squares fitting, peak integration and spectral subtraction. A solid set of scientific and pedagogical goals is being pursued in this project. Eight specific experiments requiring modern spectrometers are being adopted. While the previous classroom curriculum covered the theoretical aspects of modern spectroscopy, laboratories were burdened by a lack of modern instrumentation. Since the department strongly stresses the "hands-on" experience required for careers in modern chemistry, biochemistry and biotechnology, the lack of proper spectrophotometers was particularly acute. The courses being improved serve as an important training ground for employment in high- technology industries in the Bay Area, as well as for the approximately 30-40% of this department's graduates who matriculate to post- baccalaureate studies. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.